Cooperative Phenomena in Systems of Restricted Dimensionality

Microscopic theory and phenomenological approaches to Hi-Tc superconductors will be studied. They propose to improve current calculational techniques for electronic structure of highly correlated electronic materials. Also, cellular automata will be used to simulate quantum fluids moving in a porous medium.